Modeling Across The Curriculum

The project is a partnership between the Concord Consortium, Harvard, Northwestern, University of Michigan, the Center or Learning Technologies in Urban Schools (LeTUS) and the Firtchburn, Hudson, and Lowell Public Schools to study the impact of modeling on secondary science learning. Tools called CIE models incorporate core science content that students learn through interaction and exploration. The project will explore the hypothesis that students learn more through such models by testing it in real schools. Data will be collected from Pedagogica (the technological environment), annual administration of a project-generated assessment, extensive interviews, and standardized tests.